Polynomials in Analysis and Analytic Number Theory

Polynomials are present in nearly every area of mathematics. They have
always been and are likely to remain one of the central topics in Analysis,
in particular. The major goal of this proposal is to study several vital
polynomial problems in Classical Analysis and Analytic Number Theory, by
using the methods of Complex Function Theory, Potential Theory and
Approximation Theory as a unifying approach. We have recently made a number
of significant advances in the areas spanning from sharp inequalities for
products and factors of polynomials, and Markov, Bernstein, Nikolskii type
inequalities, to orthogonal polynomials, Faber polynomials, Bieberbach
polynomials and Bergman kernel methods in approximation of conformal
mappings. The considered problems represent a nice blend of a few subjects,
with applications in numerical approximation and symbolic computation. We
have also introduced new methods, related to potential theory with external
fields, in a long-standing problem on integer Chebyshev constant (integer
transfinite diameter) and integer Chebyshev polynomials.

The methods and results of the proposed research help to solve very basic
and important problems, such as factoring polynomials in the most efficient
way, approximating functions by polynomials and studying the properties of
certain special polynomial families. Approximation problems considered here
provide tools for numerical ways of finding conformal mappings, which in
turn have a number of interesting applications in engineering, physics and
other sciences. Many special types of polynomials, such as orthogonal
polynomials, are extensively used in various branches of natural sciences
and in computations. This wide range of applications furnishes a strong
motivation for numerous deep and comprehensive studies of polynomials, and
for our project, in particular.